Mouse "t" Complex Meeting: to be held September 29-October 2, 1996, Jackson Laboratory, Bar Harbor, Maine

Schimenti 9602461 A meeting on the t complex, a complex locus whose function is critical for notochord development but which is also associated with many different phenotypes in several different organisms, will be held at the Jackson Laboratory, September 29 to October 2, 1996. The unique properties of genes associated with the t complex have attracted investigators from a wide range of disciplines including population biology, genetics, developmental biology and evolutionary biology. %%% This meeting will bring together scientists of different professional ages and from different professional backgrounds in an environment conducive to in-depth interactions.